Doctoral Dissertation Research in Decision, Risk, and Management Science

This Ph.D dissertation project studies the extent to which scientist's judgments of evidence relevance and quality are affected by the strength and direction of their prior beliefs and by the degree of their public commitment to a theoretical position. The research will determine the extent to which scientific judgments of evidence quality deviate from the judgments of neutral observers as a function of the extent to which the evidence meets the expectation of the judge, the strength with which the expectations are held, and the extent to which the judge is publicly committed to the belief. An important area of research on judgment and decision making involves ambiguity and uncertainty of information and how individuals seek, construct and evaluate evidence with which to reduce uncertainty and how they incorporate uncertainty into their decisions. Within this context one of the more pressing topics involves the way individuals perform these tasks unaided and whether performance can be improved through training, decision aids or other means.